Mechanistic Studies on DNA Packaging by Bacteriophage Lambda

The objective of this proposal is to examine at the molecular level the mechanism of assembly of viral precursors into an infectious virus particle. A common mechanism for DNA packaging by the phage viruses has been proposed and consists of 1) binding of an enzyme called terminase to concatemeric (immature) viral DNA, 2) binding of this complex to a pre- formed capsid, 3) unidirectional of DNA into the capsid in an ATP-dependent reaction and4) nicking of the duplex and strand separation such that a single (mature) genome is packaged. Phage terminase is now obtainable in high yields and represents an ideal system in which to study viral DNA packaging. The enzyme possesses DNA-dependent ATPase, DNA translocase, restriction endonuclease and DNA helicase activities all manifest within a heterodimeric protein structure. Thermodynamic binding constants for ATP and DNA will be determined using equilibrium dialysis, gel-retardation and DNase footprinting techniques. The interactions between enzyme and ATP as well as enzyme and viral DNA will be examined using photoaffinity labeling techniques. Covalently modified residues will be identified by proteolytic digestion of the protein, isolation of the labeled peptide(s) and N-terminal amino sequencing analysis. A complete kinetic analysis of the endonuclease and helicase activities will be performed and a minimal kinetic mechanism defined using steady state and pre- steady state kinetic techniques. The experiments outlined in this proposal will allow a detailed characterization of phage terminase and serve as a basis for comparative studies with terminases from other phages Examination of these enzymes may reveal evolutionary relationships not only between terminases, but also other functionally related enzymes such as ATPases, restriction enzymes and helicases. Moreover, DNA packaging, the procaryotic version of chromosomal condensation, may yield insight into the basis mechanisms and energetics of cellular chromosome manipulation.